Native Hawaiian Lineages and Demographic Change

The primary objective of this research is to gather DNA sequence information from modern and ancient Hawaiians that will help anthropologists model the growth of Hawaiian populations, calculate lineage extinction rates, and understand migration, dispersal, and replacement in a well-documented cultural context. Genealogies for modern donors reconstructed from mitochondrial DNA (mtDNA) will be compared for accuracy to those constructed with vital statistics and census information stored in the Cancer Center registry for the State of Hawaii. Data from modern and ancient samples will be combined to produce a mitochondrial tree for Hawaiian maternal lineages, and mtDNA sequences from Hawaiians will then be compared with those obtained from other areas of the world. This information will complement data on population relacement in the Pacific gathered by linguists, physical anthropologists, archaeologists, historians, epidemiologists, and previous geneticists limited to indirect studies of the genome using protein polymorphisms. The proposal represents an effort to integrate information about modern and ancient Hawaiian populations within the context of an historical experiment that resulted in the near extinction of one complete culture on contact with a dominant economic and technological force.